Mantle Evolution Beneath the Azores Swell: A Pb-Nd-Sr Isotopic Study

The origin of the Sr-isotope anomaly spotted around 39oN and other shorter wavelength anomalies along the axis of the MAR at 46N43N, & 35N is unclear. The P.I. proposes to analyze glasses that are already in existence for Pb, Nd, & Sr isotopes to investigate the origin of such geochemical anomalies and generally develop models of mantle heterogeneities and dynamics along MAR and the Azores plume.